Travel to Attend: Fourth River Basin Management Conference August 13-18, 1986, Sao Paulo, Brazil

This award supports international travel for the investigator to participate in the river basin conference to be held in Sao Paulo, Brazil. He will present a paper on the water quality management study he has conducted on the upper reaches of the James Estuary. He plans to discuss present water quality conditions and predictions within which context water pollution control programs can be initiated.